Research Initiation Award: Evaluation of Cohesionless Soil Uniformity and Fabric Using Image Analysis (REU Supplement)

This project will deal with the fabric of soils, that is the arrangement of individual soil particles and how the arrangement affects soil properties and behavior. Image analysis techniques will be used for the fabric studies.